SGER: The Atmospheric Circulation and States of Maximum Entropy Production

Energy balance modeling studies suggest that the atmospheric circulation works close to its maximum intensity, corresponding to a state of maximum entropy production (MEP). However, this simple, emergent outcome of the atmospheric circulation is controversial and not well accepted in the atmospheric community. Preliminary results of the PI with an atmospheric general circulation model confirm the existence of a MEP state representative of the present-day climate when the amount of boundary layer friction is varied in the model. This Small Grant for Exploratory Research (SGER) project builds on these results and estimates the relevance and implications of MEP states for the atmospheric circulation under climatic change. Another focus of this project is to quantify the limits of applicability of the MEP states.

The research has potentially positive implications for our understanding of the climate system and how it responds to climatic change, an important issue having implications for environmental and energy policymaking.